Proposed Task Order No. 164

9806332 Grills Prepare Proceedings of the annual Project Directors meeting for the Program for Women and Girls held on September 29 and 30, 1997. Edit video tapes of the awardee meeting into a 15minute synopsis with highlights of participating projects. The proceedings document and video tape will be used to promote the PWG program and disseminate information on topics of the Agenda; i.e., "Maintaining and Expanding Friendly Collaboratives Between Diverse Organizations and Institutions", "Attracting and Retaining Diverse Populations", "Effective Mentoring: Tools and Practices", and "Assessing program components: middle school/school based; college/university curricula; non-school programs; electronic systems/curricular programs; teacher preparation."